EXP-SA: Tracking Human Activities for Countering IED Threats: RF Sensor Analysis, Design and Optimization

0730924
Ling
The PI will design and build a software simulation tool for generating signals, allowing for user specification of transmitters/receivers, antennae, nature of obstruction, and human dynamics. The product of the project will be a software simulator of human movement data that can be used to understand, analyze and improve the signal detection capabilities of distal detectors built to track human movement in situations without line of sight available.